Instant-On Simulation Delivery: Helping TeraGrid Achieve Its Wide and Open Strategic Goals

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

The authors propose to develop, test, and deploy enhanced HUBzero-powered science
gateway technology that will host TeraGrid-approved codes and workflows with results-archiving and
reuse that is connected to a portion of TeraGrid configured for queue-less, instant-on, interactive parallel
computing. This project demands the creation of production-quality middleware to connect a HUBzero-
powered science gateway to TeraGrid resources that will operate reliably under actual loads.